Participation of Qualified Oceanographers from Developing Countries in International Scientific Activities

This award provides funds to the Scientific Committee on Oceanic Research (SCOR) for a long-standing program of travel assistance to qualified and active oceanographic researchers from developing countries and nations with economies in transition. SCOR travel grants are awarded to enable such individuals to attend international meetings relevant to their scientific interests and to those of SCOR and the Division of Ocean Sciences of NSF. This ongoing project has become the cornerstone of SCOR's efforts to provide assistance to marine scientists in the third world and, more recently in Russia and Eastern Europe.

Broader Impacts

The impacts of this activity extend beyond the ocean sciences into other scientific topics by stimulating scientific progress in developing countries. In many cases, personal connections and collaborations that can result from contacts made through these travel grants can have long-lasting effects both in international activities as well as in the developing country’s science communities as the individuals involved rise through the ranks of science and science policy.